Biodegradation of Volatile, Halogenated, Aliphatic Compounds

This is an award to support for Phase II of a project initiated under NSF Grant No. 88-60919 under conditions outlined in the Program Solicitation for Small Business Innovation Research, NSF 88-8. The work under Phase I resulted in demonstration of the feasibility of an innovative concept using microbes to biologically degrade volatile halogenated aliphatic organic contaminants of soil. The process achieved as much as 99.9 percent destruction of trichloroethylene. In Phase II, the scope of the work will be narrowed to a liquid-phase reactor that is of sufficiently large scale to facilitate full- scale design and construction of prototype bioreactors and determine the commercial applicability of the process by determining its efficiency and economic feasibility. The contamination of ground and surface waters by organic compounds that are the target of this research is a matter of great National concern. It is imperative that technologies be developed that are more efficiently responsive to decontamination of soil.1 Results of this project are expected to be useful in this respect.